U.S.-Japan Joint Panel on Wind and Seismic Effects

Participation in the US-Japan Joint Panel on Wind and Seismic Effects offers a unique vehicle for U.S. and Japanese agencies interested in seismic and wind effects on structures to collaborate on research, exchange technical data and information, and exchange researchers for the benefit of both countries. Further, the Panel provides the opportunity to leverage limited research resources by closely coordinating work conducted in the U.S. and Japan to avoid duplication of effort.